Workshop on Cosmology

AST 0118263
Dodelson

This funding is for a 3-week workshop titled "Structure Formation and Dark Matter: Theory vs. Observations." The Elementary Particles and Field Theory Group of Los Alamos National Laboratories and the Cosmology Group at the University of Chicago are coordinating the workshop. The workshop is designed to promote discussion through both formal and informal talks. The funds for this grant will be used to support travel expenses for approximately six students, thus enhancing their training in the field of Cosmology.

Funding for this project was provided by the NSF program for Extragalactic Astronomy & Cosmology (AST/EXC).
***